A System to Share and Explore Human Brain Mapping Data

Smith, Kenneth P.
0135397

The neuroscience community is accumulating a vast amount of human brain mapping data using a
variety of techniques that operate over a wide range of spatial scales. Currently its use is generally
limited to the lab of origin; the data is not readily available to other investigators for subsequent studies.
The overall goal of this research is to design, prototype, and evaluate an information infrastructure for
human brain mapping data which will help realize the full potential of this growing store of mapping
data. In this initial undertaking, we focus on a system that enables the analysis, exploration, and
dissemination of structural Magnetic Resonance Imaging (MRI) data. Our major aims are: 1) to develop
and deploy an operational digital library for structural MRI data that will enable users to contribute and
retrieve data, as well as explore and analyze associated metadata; 2) to design a data warehouse of
structural MRI data that will allow users to manipulate images, explore spatial relationships among
regions, and reason about abstract attributes of structural regions (e.g., volume); 3) to design a
content-based retrieval system that will allow users to retrieve images with features similar to those in a
submitted example; 4) to develop techniques that enable users to dynamically aggregate warehouse
information into a probabilistic brain atlas for specified populations of interest; and 5) to develop a
prototype system that will ground architecture and query language development in a real world setting so
that tradeoffs in design choices may be accurately evaluated.